Doctoral Dissertation Research in Geography and Regional Science

Atlases consist of both maps and accompanying descriptions and explanatory texts. As a result, they are both written geographical texts and works of cartography. While maps are a fundmental medium of geography, the texts accompanying them are crucial to any interpretation of the maps, and they lend substance to the abstract and highly codified cartographic images. This doctoral dissertation research seeks to explain the sources and influences on atlases. It will try to explain how both maps and text are interrelated in the structure and discourse of atlases as a whole. The earliest English world atlases are closely related to the political, economic, scientific, and social developments in seventeenth- and early eighteenth-century England. This study aims to reconstruct the presence of this context within the content of the atlas texts. Specifically, the doctoral student will examine how information about North America was structured and diffused by early modern world atlases with English texts, and she will analyze the interrelationships of maps and texts of atlases. Atlas sections covering North America will be analyzed in the contexts of their editorial and commercial theory and practice in seventeenth- and early eighteenth-century England. The role of atlases as a medium of power and knowledge in the formation of an English overseas empire also will be explored. Historical reconstruction based on archival research in the U. S. and England will take three forms: the roles of atlases as practical documents; the meaning of the atlases to contemporaries; and the social impact of atlases in English society. This project will illuminate several aspects of cartography. The theoretical and empirical contributions it will make will constitute cutting edge research that is redirecting the history of cartography toward increased intellectual significance. The project will further develop a method for the study of the systematic map-and-text arrangements that is vital to the study of human communication, and it will expand the seventeenth- and early eighteenth-century historical context for any further study of science and society in that period. The project will also provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.